Operating Systems Laboratory

The Computer Science Department at the University of Colorado-Colorado Springs will purchase four Sun-3/160 workstations. The project will provide a laboratory and laboratory exercises for students taking a required operating systems course to experiment with the design and implementation of operating system software components. The objective is to provide a laboratory facility for undergraduate computer science students to obtain hands-on experience in the design, implementation, and performance measurement of computer operating systems. In this way students will be able to function better in their careers as computer scientists.